Animating Viewer Rotation by Exploiting Frame-To Frame Coherence

This project considers the problem of displaying a series of views of a polyhedral scene from the vantage point of a moving viewer, called "animating viewer motion." The investigator has previously shown how to take advantage of frame-to-frame coherence to animate viewer motion for the restricted case of parallel projection, viewer rotations only, and rendering via line drawings with hidden lines removed, resulting in the only efficient algorithm for this case. The algorithm has been implemented and shown to be practical. Several extensions to this work, including more sophisticated rendering, perspective projection, and arbitrary viewer motions, will be studied.